Nonlinear Structured Models of Interacting Cell Populations

The dynamics and asymptotics of interacting cell populations is considered. Structured rather than compartmental models are analyzed thus allowing continuous variation in structure variables such as DNA content. The theory of nonlinear semigroups will be used to analyze the partial differential equations which result from such models.